Theory of Elementary Particles

Research in theoretical elementary particle physics will focus on the
study of the symmetries and the dynamics of string theory, quantum
field theories and integrable quantum spin chains. A better
understanding of the symmetries of physical models will give us
detailed information about the interaction of particles. String
theory is the only known consistent candidate for a unifying model of
all the fundamental interactions (forces) of nature including
gravity. The study of symmetries will lead to new quantitative
methods for computing quantities of physical interest, such as the
masses of the elementary particles. The investigations of integrable
quantum field theories and spin chains will provide exact results for
such quantities and will serve as test beds for many ideas. This
work is significant for quantifying our understanding of the
elementary particles and the forces of nature.